Crystal Chemistry

9424445 O'Keeffe This research program consists of experimental and theoretical studies in crystal chemistry. The proposed theoretical work includes the development of an ab initio quantum molecular dynamics method for simulating the structure and properties of "ionic" compounds maintained at constant pressure. This will be used to study phase equilibria and defect energetics and structure in a variety of important compounds. The prototype compositions will be silicon oxides, but considerable effort will be devoted to inventing materials with novel structures and properties. The bond valence method of analyzing bond lengths in crystals will be extended to include the effects of non- bonded interactions and to accommodate exceptional cations. The mathematics of nets such as occur in zeolites and framework silicates will be studied. The experimental work will be devoted to synthesis of new nitrides and oxides, with special attention to phases stable at high pressure. Structural characterization of new phases and previously known important phases with incompletely determined structures will be conducted using X-ray and neutron diffraction. %%% This research program consists of experimental and theoretical studies in crystal chemistry. The underlying theme of this project is to obtain deeper understanding of the factors that determine crystal structures and their relationship to chemical and physical properties. Examples of some of the major lines of research are: 1) simulation of crystal structure for application to phase equilibria studies at high pressures and to examine defects in crystalline materials; 2) measuring electron density distributions in crystals to understand bonding; 3) crystal structure determination to confirm theoretical studies; and 4) the development of adequate descriptions of complex structures.